Dynamics of Electron-Molecular Ion Collisions

9322067 Orel This proposal addresses a number of questions concerning electron polyatomic ion scattering. These include photoionization of simple polyatomic molecules, dissociative recombination, and photoionization of absorbed molecules on surfaces. The results are important in low temperature plasmas such as those which occur in plasma etching and the interstellar medium. ***